Continuation of REU Site in Structural and Geotechnical Engineering at the University of Maine

The goal of this project in Structural and Geotechnical Engineering at the University of Maine is to encourage more outstanding undergraduates to pursue research careers. The key aspects include: 1) a successful recruitment program; 2) careful matching of student interests with available research projects; 3) an effective management structure; 4) research assignments the students can quickly grasp and complete in the time frame; and 5) follow-up procedures designed to maintain student interest in research. The four research projects involve finite element analysis, state-of-the-art soils testing, scale modeling, structural testing, and soil-structure interaction. Two students will be involved in each project to allow for student interaction. Interaction will also be fostered by group seminars and meetings. Extended funding for this site allows the school to continue its long standing commitment to undergraduate research.